SCC-CIVIC-FA Track B: Everyday Respect: Measuring & Improving Communication During Motor Vehicle Stops

Traffic stops carried out by law enforcement officers include routine encounters as well as situations that hold the potential for fatalities. This project aims to investigate the communication dynamics during traffic stops conducted using audio and video footage from body-worn cameras. The research builds on evidence that officers' initial communication influences the course of the interaction and whether it escalates or not. Additionally, the project will examine potential disparities in the treatment of community members based on demographic factors and other relevant variables. The project will also study the interplay among factors such as demographic characteristics, disability status, community context, and officer training in shaping officer and driver interactions. Collaboration with a training academy is integral to developing and implementing new training curricula based on the research findings.

This study takes a community-informed approach by incorporating footage from body-worn cameras, as well as complementary data on stops, personnel, driver behavior, and community context. The project includes input from the department studied and other community stakeholders to define the dimensions of effective communication that should be evaluated. Human annotators from diverse backgrounds are employed to code the identified dimensions of officer communication. Machine learning tools, trained on these human annotations, enable the project team to analyze communication patterns at scale. The project team conducts statistical analyses to investigate the causes and consequences of officer communication, including factors that may contribute to differential treatment of different groups within the community, and to develop new training tools that can be tested at the training academy.

The CIVIC Innovation Challenge is a collaboration with Department of Energy, Department of Homeland Security, and the National Science Foundation.